ITWF: Culturally Situated Design Tools

Information Technology Workforce (ITWF)

Proposal Id: EIA-0119880
Investigator: Ron Eglash
Institution: Rensselaer Polytechnic Institute
Title: Culturally Situated Tools

This award provides support for Rensselaer Polytechnic Institute (RPI) to develop culturally-situated design tools to motivate ethnic minority students to learn mathematics and to pursue careers in Information Technology. The tools will be integrated into standard curricula for use by approximately one thousand middle school students in Rensselaer Polytechnic Institute's local GEAR-UP program (the U.S. Department of Education's Gaining Early Awareness and Readiness for Undergraduate Program). The use of the design tools will be evaluated over a 3-year period and the results will be disseminated widely.